Hispanic Radio Network: Self Reliance Through Science Outreach -- A Planning Grant

Proposal No. ESIE 94-53879 Proposal Name: HISPANIC RADIO NETWORK - SELF RELIANCE THROUGH SCIENCE OUTREACH PI: Jeff Kline NSF Commitment: $50,000 ABSTRACT The Self Reliance Foundation is requesting a $50,000 grant to plan a nationally broadcast Spanish language outreach program for science and environmental education in cooperation with the Hispanic Radio Network (HRN). HRN currently produce and distribute two Spanish language radio programs. Their plan is to incorporate into these programs information about ways parents and other adults can help children improve their math and science skills; about educational resources, scholarships, and career opportunities in the sciences; about the importance of science in everyday lives; and other information on current topics in science and the environment. Special attention will be paid to information relevant to Hispanic migrant workers. The PI for the planning grant will be Jeff Kline, General Manager of HRN. Key HRN staff to be involved in the planning include Consuelo Luz, producer of "Buscando la Belleze," and Enrique Gil, co-producer of "Salvemos Nuestro Planeta. Vincente Llamas, Principal Investigator for the Comprehensive Regional Center for Minorities in Las Vegas will be a principal consultant.